Information Processing Models for Attention, Categorization, and Multiple Choice Paradigms

The goal of this research is to investigate the perceptual and
cognitive processes used in the categorization of complex stimuli.
There are two broadly-defined explanations of categorization
decisions: decisions may be based on abstract rules, or they may be based
on recall of particular examples from memory. These explanations are
implemented as formal models (e.g., Nosofsky's GCM Model and Ashby's
GRT model). A series of probability-learning experiments will help
determine which of the two explanations provide a better account
across various stimulus conditions. Preliminary results indicate that
people use memory exemplars when there are a few to-be-classified
stimuli, but they use rules when there are several to-be-classified
stimuli. The working hypothesis is that people are flexible: using
either rule-based or exemplar-based strategies depending on the
cognitive demands of the task. Exemplar-based categorization is used
when the cognitive demands of the task are relatively light while
rule-based categorization is used when the cognitive demands of the
task are relatively heavy. The research will allow for a fuller
understanding of the nature of categorization processes which will aid
our understanding of human decision-making and have important implications
for education.